Degenerate Microlocal Methods in Geometric Analysis

Abstract

Award: DMS-0505709
Principal Investigator: Rafe Mazzzeo

The PI proposes several activities, all fitting in the framework
of linear and nonlinear elliptic problems arising in geometric
analysis on noncompact and singular manifolds. He proposes
continuing his collaboration with Vasy on new microlocal
techniques for constructing the resolvent on locally symmetric
spaces of arbitrary rank. This approach has already led to a new
proof of a meromorphic continuation of this resolvent, which in
turn will have applications in scattering theory and to nonlinear
elliptic equations on asymptotically symmetric Einstein spaces. A
goal of this portion of the proposal is to create versatile
methods, adapted from N-body Schroedinger theory, to open the
analysis on higher rank spaces to a purely microlocal approach.
This should lead to advances in geometric scattering theory on
these spaces. The other part of the proposal discusses
deformation theory of noncompact Ricci flat Einstein spaces and
of Einstein spaces with conic singularities. Even for surfaces,
the PI expects these methods to give new results about the
existence of constant curvature and Ricci soliton
metrics. Finally, the PI proposes to continue his role as
director and teacher in SUMaC, the residential summer program for
mathematically talented high school students, and also to
continue his other mentoring and outreach activities.

The overall area of research in this proposal concerns a study of
the relationship between the geometry of higher dimensional
curved spaces and the behaviour of solutions of certain natural
equations on these spaces. One example is a subject called
geometric scattering theory, which seeks to describe the
behaviour of waves, measured at large timescales, and to see how
these are influenced by the curvature of the underlying
space. The PI has developed methods to study such problems on a
natural class of spaces which appear in several different
branches of mathematics. Other examples include the study of
solutions to the Einstein equations, which are supposed to
describe possible configurations for the large-scale shape of
space. There are many such solutions; one way to organize them is
to describe their deformation theory, i.e. to see how they may be
altered continuously. The PI proposes to study these questions
for certain of these spaces. A key novelty of his methods is the
development of techniques from a field called microlocal analysis
to these geometric problems. The nature of these topics will lead
to interactions with mathematicians in diverse areas as well as
physicists, and it is hoped that the results of this proposal may
have some impact in these other areas. The PI is also actively
involved in training and mentoring at various levels. His SUMaC
program, now entering its eleventh year, is a proven success in
motivating gifted high school students to continue their
mathematical studies. He has also been active in graduate
training and in collaborating with young postdoctoral
researchers.